GOALI: Soot and NOx Control in Diesel Engine Exhaust

A novel regenerating filtration system for Diesel engines will be investigated. The system consists of a rotating fluidized bed reactor with a variable speed that will collect soot during low power operations, and react the collected soot with NOx at high power operations where the temperature is sufficiently high. The particulate catalyst acts as filter medium for soot retention and promoter of the NOx reduction. The operation of the catalyst is essential to the success of the filtration system. Laboratory and pilot station experiments are planned. A single catalyst granule model will be develop to be used as reference in conducting and interpreting the experiments. A group of companies, including petroleum refining companies (Exxon, Mobil Technology Co.), catalyst manufacturers (Engelhard Co., Alcoa, Johnson Matthey) and Diesel engine manufacturers (Cummins, Ford, Mercedes-Benz, Volvo) will collaborate to the project by providing support to experiments and technical feedback, and supplying partial funding. Industrial partners will provide in-kind contributions, participate to research, and support with funds the university research component, satisfying the requirements for a GOALI project. NJIT will contribute 50% of the cost of equipment. The NJIT team has the co-P.I.s from chemical engineering, chemistry, and mathematics. Four programs have co-reviewed this proposal: Fluid, Particulate and Hydraulic Systems (FPHS), Chemical Reaction Processes (CRP), Environmental Technologies (ET), and GOALI.